MRI: Acquisition of a Multi-Dimensional Nano-Characterization System Based on a Scanning Probe Microscope for Multidisciplinary Materials Research and Education

Non-Technical Description:
A scanning probe microscope (SPM) is a scientific instrument that uses a sharp probe to measure surface and interface properties in nanometer and sub-nanometer spatial resolution. The SPM system acquired through this Major Research Instrumentation (MRI) award has significant impact on the research, education, and training infrastructure at Rowan University and its surrounding area in southern New Jersey. First, this instrument enables collaborative materials research among faculty members, undergraduate and graduate students, and regional industrial participants to conduct ground-breaking research. It allows the establishment of inter- and intra-institutional research collaborations. Second, this instrument helps grow several programs, such as the Materials Science & Engineering program, by providing ample opportunities for both undergraduate and graduate students to work on their research projects, coursework, or thesis projects, directly impacting the training of a technical workforce for the region. Third, this instrument is used by many researchers including women and underrepresented minority faculty and students through established university and college programs. This provides better experience, stronger training, and more opportunities for researchers from groups typically underrepresented in science and engineering. Finally, this instrument serves the local needs in advanced materials research and training, resulting in increased interactions with local industries and stronger impact on the economic growth in the region.

Technical Description:
The acquired SPM system combines ultrahigh-resolution imaging, nanoelectrical measurement, nanomechanical characterization, and nanoelectrochemical analysis for the research of various material systems in air, fluid, electrical field, or chemically reactive environment. With these advanced features, the instrument enables research projects in five key research areas: (1) surface morphology and nanomaterials research; (2) functional materials, flexible electronics and sensors; (3) electrochemistry, energy materials and devices, and protective coatings; (4) biological and biomedical materials, life sciences; and (5) additive manufacturing, construction and structural materials.